Complexity in Commutative Algebra

The main objective of the investigator is the study of
algebraic structures--a ring, an ideal or even a module--as they
undergo smoothing processes. These transformations enable them to
support new constructions, including analytic ones. In the case
of algebras, divisors acquire a group structure, cohomology tends to slim down, and
it is an essential step in the desingularization of singular
varieties. There is an inherent interest in those processes that add to the
structure the solutions of collections of equations of integral
dependence. Finding these equations, determining the
properties of the assemblage of solutions and understanding the
complexity costs of these tasks, is a central region of
research for commutative algebra. Bringing into this mix the numerical
controls provided by multiplicity theory--broadly seen as the
assignment of measures of size to an structure--make for a technically challenging and
potentially very rewarding activity smack right where the field interacts
mostly intensively with algebraic geometry and computational algebra.
The investigator introduces an approach to the study of theoretical aspects of
certain classes of algebraic structures from the perspective
of complexity. As applications, the investigator seeks to predict how
delicate techniques associated to smoothing processes will perform
when applied to the solution of several problems of interest,
and thereby suggest which mix of methods offer higher performance.
They will also be employed to derive ordinary complexity counts for several
of these problems without previously known classical counts.

Commutative algebra is foremost the study of sytems of polynomial
equations, and of its generalizations. It has elucidated several
structures that occur among such systems, particularly those tagged as
of Cohen-Macaulay type. These encode incredible theoretical efficiencies in the
derivation/prediction of its properties and offer superb computational
economies. Often the full natural set of equations is not known at
the outset so that methods and processes must be developed to find and analyze it.
This proposal is focused on one central process, that of smoothing transformation.
It will develop methods, grounded on the Cohen-Macaulay case, to predict properties of
the `closure', devise algorithms to find it and examine the limits of
the behavior of arbitrary [even unknown] algorithms.
The methods and results used in these developments will be used for
interaction where the subject meets algebraic geometry, combinatorics, geometric modelling, number theory and robotics.